AF: Medium: Theory and Practice of Optimal Meshing

Meshing has been a cornerstone for simulations using the finite
element method. But more recently it has had applications wherever
one needs to define a function over a domain, such as, graphics,
computer aided design, robotics, and even machine learning. Algorithms
will be designed to efficiently work in any fixed dimension with
guarantees on output size and quality.

At present, no theory exists to formulate and produce optimal meshes
in the presence of small input angles even for the 2D case. The
research will find efficient algorithms 2D and higher dimension that
generate optimal size Delaunay triangulations using only simplices
with no angles approaching 180 degrees.

Machine learning applications need a meshing algorithm that runs in
polynomial time for meshing n points in log n dimensions.
Historically, meshing algorithms return a set of space-filling
simplices. Even good aspect ratio simplices have too small a volume
and return a mesh that is of super polynomial size. Thus, new
algorithms will be developed that handle atomic objects that are have
much larger volume than simplices.

The results from this project are eminently practical and have broad
impact on the Sciences, Engineering, Manufacturing, and Machine
Learning. In particular, meshing is an enabling technology for
designing efficient windmills and cars, and simulations of earth
quakes and medial devices. One goal is to incorporated techniques
from this research into our first generation 3D code that we made
available on the web. In addition, this material will be incorporated
into classes taught at CMU, lectures, and papers presented at
conferences.